Juvenile Hormone and the Evolution of Limb Patterning in Insect Metamorphosis

The project examines the role of juvenile hormone (JH) in the evolution of
metamorphosis and of the larval stage in insects. A key finding is that
in embryos of basal insect groups, JH suppresses the growth of embryonic
primordia and induces their precocious maturation. In insects with
complete metamorphosis, by contrast, JH treatment has little effect on
embryonic development but later application can suppress the resumption of
"embryonic" growth that is the prelude to metamorphosis. An advancement
in JH secretion during embryogenesis of the latter insects may have
provided a mechanism by which a late embryonic instar, the pronymph, was
modified to become an active, feeding larval stage characteristic of
insects with complete metamorphosis.
The proposal examines the effects of JH on the expression of three genes
involved in proximal-distal (P-D) patterning of the leg: Distal-less (Dll),
dachshund (dac), and rotund (rn). The objectives are: 1) to determine if
the spatial and temporal expression of P-D patterning genes seen in
developing leg imaginal discs in Drosophila also occurs during the
patterning of the embryonic leg in a more basal insect such as the
grasshoppers, Schistocerca americana; 2) test whether JH treatment to
these embryos during limb formation results in a truncation or alteration
in P-D gene expression? 3) examine P-D gene expression in embryos of the
moth, Manduca sexta, to determine if the novel leg of the caterpiller is
associated with a novel (truncated?) program of P-D gene expression; 4)
examine the transition in P-D gene expression during metamorphosis and its
sensitivity to juvenile hormone treatment.